Seabeam Investigation of the Mid-Atlantic Ridge Between 24 Degrees North and 30 Degrees 40' North and SeaMARC II Investigation of the Australian-Antarctic Discordance

This renewal will support an additional year of study of the geophysical data collected during three field programs in 1988. These field programs have produced rich data sets about crustal accretionary processes along the intermediate-spreading Southeast Indian Ridge and the slow-spreading Mid-Atlantic Ridge. The renewal will support further analysis of the volcano-tectonic characteristics of these spreading centers as well as for further processing of the magnetic and gravity data sets.